CSR: Rethinking the Role of CPU in Machine Learning Systems

Artificial intelligence systems, especially large language model systems, increasingly rely on large networks of computers working together to train and serve machine learning models. As these systems grow, they face rising costs, limited flexibility, and growing dependence on specialized hardware that is difficult to adapt to new applications. This project investigates a new approach that gives CPUs (Central Processing Units) a much larger role in managing communication, data movement, and memory-intensive operations across artificial intelligence infrastructure. By transforming CPUs from passive coordinators into active computing partners, the project aims to make future artificial intelligence systems more efficient, adaptable, and affordable. The resulting technologies could support larger models, improve resource utilization, and reduce the cost of deploying advanced artificial intelligence services.

The research explores a fundamental redesign of distributed machine learning systems through three interconnected thrusts. The first thrust develops a software-defined transport architecture for remote direct memory access networks, enabling programmable control of communication functions traditionally embedded in fixed hardware. The second thrust creates a portable communication framework that allows heterogeneous accelerators and network devices to exchange data efficiently without reliance on vendor-specific software stacks. The third thrust investigates attention-as-a-service for large language model inference by offloading attention computation and key-value cache management from GPUs (Graphics Processing Units) to a distributed set of CPUs. Together, these thrusts advance new principles for software-defined communication, portable accelerator networking, and resource-efficient inference in large-scale machine learning systems.

The project seeks to broaden access to advanced artificial intelligence infrastructure by reducing dependence on proprietary hardware ecosystems and lowering operational costs. The resulting software technologies can increase flexibility for universities, nonprofit organizations, startups, and industry by enabling effective use of diverse computing resources. The research may also help data center operators improve system utilization and simplify network management while maintaining high performance. Educational activities associated with the project will provide students with training at the intersection of computer systems, networking, and artificial intelligence. By promoting open, portable, and cost-effective computing infrastructure, the project aims to expand participation in artificial intelligence research, and enhance the societal and economic benefits of artificial intelligence technologies.